Singularly Perturbed Convection Diffusion Problems

Kopriva, David
From: R. Bruce Kellogg [[email]]
Sent: Thursday, May 31, 2001 6:04 AM
To: [email]
Cc: [email]
Subject: Proposal No: 0101563 - Abstract

Proposal No: 0101563 - Abstract

Some problems of mathematical and numerical analysis related to
singularly perturbed boundary value problems will be studied. The
mathematical problems include obtaining sharp bounds for derivatives of
the solution that take into account boundary layers, interior layers, and
corner singularities. The numerical problems include the development of
stabilized discretizations for these singularly perturbed problems and
the study of the best approximation properties of singular perturbation
problems.

The proposed work studies physical systems in which some quantities
undergo rapid changes in certain regions. Such systems include fluid flow,
where the rapid changes occur at boundary layers, shocks, and interior
layers. These systems arise in the design of fluid machinery, the study
of underground oil and water transport, the modeling of airflow over
cars and airplanes, and other areas. The results of this research will
be of use in the development of more accurate computer simulations of
these systems, with consequent improvements in the design of equipment
used in such real-world problems. In addition, the proposal provides
for regular visits of Professor M. Stynes to the U.S.; it is planned
that Prof. Stynes will interact with graduate students in mathematics who
are working in related areas.